Residual Stress in Engineering and Biological Materials: Constitutive Theory and Applications

9634903 Hoger The objective of the proposed research is to develop constitutive equations for residually stressed biological tissues and to use them to predict the mechanical response of the residually stressed body to applied loads. The balance of experimental work with modeling and relevance to a specific material applications is excellent. The theory will be applied to cardiac tissue, which supports a substantial residual residual stress field and which has been the subject of extensive experimental investigation. Collaboration with engineers in biomechanics will facilitate the transition between details of theoretical concern and issues of practical applicability. The theoretical approaches and computational tools that will be developed in the context of biological tissues should also be relevant to many engineering materials applications where residual stresses also play an important role. ***